CO2 and Methane Fluxes by Ecosystem Type and Long-Term Feedback Relationships with the Atmosphere

The three major aspects of this project are (1) comparison of CO2, water and energy fluxes in different vegetation types and climates, (2) evaluating the roles of water and energy fluxes as components of the coupled land-atmosphere system, and (3) determining the relative importance of soil, root, and aboveground components of net ecosystem CO2 flux. Fluxes will be measured in with season-long fluxes measured in reference vegetation types by other projects. The role of water and energy fluxes in regional climate will assessed by land-surface model that can be coupled to a regional climate model. Sensitivity analysis with this land-surface model will determine the major ways in which regional climate. Labeling of soils with stable isotopes will be used to evaluate the relative importance of roots and soil in controlling CO2 flux from tundra. These experiments will be coordinated with measurements of soil organic matter content and quality and of ecosystem CO2 flux made by other projects in the Arctic System Science (ARCSS) Land/Atmosphere/Ice Interactions Flux Study.